III-CTX-Small: Adaptive Integration of Structured and Unstructured Data from Many Sources in a Biological Domain

This project involves the design and building of
a knowledge base (KB) system that
learns to more accurately integrate the many heterogeneous sources of
information that are relevant to a single scientist's research needs.
The system works by loosely integrating data of many sorts (including
unstructured text) into a single typed directed graph, and then
querying the graph using a query language that allows "schema-free
similarity queries". These queries specify a set of query terms
(e.g. keywords, entities in the KB, etc) and constraints on the
desired output (e.g. a target data type). The result of a query is a
ranked list of KB entities, ordered by similarity to the query terms.

After a query, a user can optionally label any subset of the ranked
list of suggested answers as ``relevant'' or ``non-relevant''. These
labels drive a learning phase, the goal of which is to produce a
better ranking. Types of learning currently being investigated
include EM-based parameter turning, learning to discriminatively
re-rank, and learning to restructure the graph (by adding or deleting
edges or vertexes). Queries collected in the laboratory of working
biologists are used to evaluate these learning methods.

The broadest impact of this project is on the problem of learning to
integrate heterogeneous data sources (including free text and
structured data). However, if successful, the KB system will have
broad impact in the biological research community; in particular, we
believe that adaptive personal KB systems of this sort will be a
valuable complement to existing biological KBs.

Further information on this project can be found at
http://www.cs.cmu.edu/~wcohen/querendipity/